Collaborative Research: WoU-MMA: Optimizing the Design of the Next Generation Gamma-ray Observatory in Chile - SWGO

This project supports the development of the Southern Wide-Field Gamma-Ray
Observatory (SWGO), a major international scientific facility designed to capture the
highest-energy light in the universe. Located in the Atacama Desert in Chile, this
observatory will act as a giant cosmic camera, monitoring the sky for extreme space
events such as exploding stars and their remnants, black holes, and colliding galaxies.
By tracking these phenomena, the project helps scientists understand how the universe
works, how radiation travels through space, and where it is generated. Beyond its
profound scientific value, this research promotes national competitiveness and
technological progress. It maintains global leadership in astrophysics for the United
States, trains next-generation scientists and engineers through hands-on research
opportunities for students, and advances open-access software tools that can be
adapted for modern artificial intelligence applications.

To achieve these goals, key risk-reduction and engineering prototyping tasks are carried
out for the observatory's core Water Cherenkov Detector (WCD) array. Extreme weather
testing of an updated, corrugated steel-mounted WCD design is conducted at Michigan
Technological University, complemented by mechanical prototype testing of a steel mounted
tank at the high-altitude site in Chile. Ground-based detection of sub-TeV to
PeV gamma rays is optimized to provide critical data on cosmic ray acceleration, search
for dark matter annihilation signatures in dwarf spheroidal galaxies, and constrain
beyond-standard-model physics. The activities are designed to deliver an observatory
that is robust, quick, and nimble in its construction and operational overhead. This
objective is tightly integrated into the broader multi-messenger astronomy network to
enable high-cadence, low-latency transient alerts in partnership with gravitational wave
and neutrino observatories in order to achieve world-leading scientific advancements.